SGER: Computational Neuroscience Problems with Application to Microarray Expression Analysis

DBI 9978582; SGER Computational Neuroscience Problems with application to Microarray Expression Analysis

The objective of the proposed research is to develop and implement computational
approaches for determining the mechanisms through which information is represented
and processed within neural systems. The project will then examine the hypothesis that this problem is similar to studying gene expression patterns using DNA microarrays in order to learn about the underlying regulatory networks that presumably govern gene expression. Thus, the proposed overall intent is to adapt methods developed in the neural domain to analyze gene expression data from microarray experiments.
The premise is that the scientific problem of neural mapping and the problem of using DNA microarrays to understand gene regulatory networks share some interesting similarities. The underlying assumption is that both systems, gene product regulation and neural activity are governed by a control network-understanding in greater depth and subsequent computational modeling of the neural system could, when applied to the network control analogy in gene expression provide valuable insights and ultimately the basis of a new set of informatics tools designed to better analyze microarray gene expression data.